RIA: The Canonical Correlations: Numerical Algorithms and Extensions

The goal of this research is to carry out the analysis of structured (e.g.Toeplitz) matrix pairs and to analyze the convergence behavior of the numerical algorithm connection with constructing efficient preconditioners. Numerical algorithms are developed for updating and downdating problems associated with canonical correlations when data points are added or deleted. Theories and algorithms are developed for the following extensions of canonical correlations: canonical correlations with a general bilinear form, canonical correlations with linear equality constraints, canonical correlations of several data sets. This research is expected to yield new concepts in matrix decompositions and numerical linear algebra and statistical computation, and facilitate and further spread the use of canonical correlation analysis in the general scientific community.